Role of Retrograde Messengers in Visual Development

9602143 PI: Sur The long term objective of this project is to elucidate the mechanisms by which the activity of developing nerve cells during embryonic development influences the patterns of connections in the brain to generate a functioning system. It is postulated that the mechanisms involved in development may be similar to those known to play a part in regulating the plasticity of connections of the mature brain. The proposed experiments address the role of nitric oxide, a substance recently shown to play a part in the transfer of signals from one nerve cell to another, in regulating the establishment of synapses (the structures through which nerve cells in the brain communicate). It has previously been demonstrated that substances that block the normal function of the relevant synapses, also prevent the normal development of the visual processing region of the brain. This may be effected through changes in the permeability of the cells to calcium ions. The overall outcome of these experimented will be to provide a fuller explanation of how orderly patterns of nerve connections develop in the brain.